Presidential Young Investigator Award: Multichip Module Design for Manufacturing

Lee This research addresses some key requirements for the design for manufacture of very small supercomputers used in intelligent machines such as portable robots. This multidisciplinary effort is centered on developing a compact rapid prototyping and manufacturing center. Microscale laser lithography, flip-chip soldering and robot controlled pick-and-place techniques are being used. Simulation studies validate the design before prototyping. Research is concentrating on the self-aligning mechanism with an emphasis on the reliability of solder joints, fuzzy logic modeling with focus on the process modeling and optimization, and further improvement of thermosonic bonding technology.